The Second DMJ/IMRN Conference

This award will fund young participants at the Second Duke Mathematical Journal/International Mathematics Research Notices (DMJ/IMRN) Conference, which will take place at Duke University on April 27 to 29, 2001. For the purposes of this Conference, a young mathematician is one who is just about to graduate or is up to seven years beyond the doctorate.

The Conference will focus on areas covered by the two journals. The eight speakers will be internationally renowned younger mathematicians. The goal of the Conference is to bring together young mathematicians to help them learn about recent major developments in areas near their own, and also to help broaden their interests and perspective (which should be important in their development as mathematicians).